Priming the Pump for Curricular Change

The Mathematical Association of America is developing and implementing model workshops at annual meetings of each of the 29 Sections of the Association. The model workshops will contain three components: a contributed paper session or panel discussion featuring individuals rewarded grants for activities in pre-college and undergraduate mathematics programs; an overview presentation highlighting designated NSF program initiatives; and a workshop on the preparation and evaluation of proposals. The sessions will disseminate results of projects supported by the Foundation and stimulate discussion about current issues in pre-college and undergraduate mathematics education.